GPS Instruments for Crustal Deformation Monitoring in California

This award provides one-half of the funds required for the purchase of six receivers and site packages for use in Global Positioning System (GPS) satellite-based geodesy. The instruments will become the property of the Scripps Institution of Oceanography (SIO) of the University of California, said institution being committed to provide the remaining necessary funds for their acquisition. The new GPS receivers will be deployed in a field campaign to monitor crustal deformation in central and southern California. SIO is a member of the University NAVSTAR Consortium (UNAVCO), and the use of the receivers will be shared between SIO and UNAVCO according to the terms of a Memorandum of Understanding signed by SIO, UNAVCO and NSF.